CSR---VCM: Autonomic Mechanisms for Reducing System Downtime due to Maintenance and Upgrades

The project investigates and develops autonomic mechanisms for
reducing system downtime due to software maintenance and upgrades.
The project addresses operating system upgrades and also application
upgrades, focusing on standalone binary-executable applications. The
main goal is to lessen the possibility that patches and updates will
``break'' expected functionality of the environment that worked fine
together with the old version -- overall maximizing availability and
reliability both during and after maintenance while imposing little
management overhead. The contributions stem primarily from a
virtualization architecture that decouples application instances from
operating system instances, enabling either to be independently
updated. The results, disseminated via web download, will improve
availability of legacy applications, with no source code access,
modification, recompilation, relinking or application-specific
semantic knowledge, and perform efficiently and securely on commodity
operating systems and hardware.